A Self-help, Elementary-level Science Video Project for Adults: Part II

The Self Help Elementary Level Science (SHELLS) Part II is the continuation of the video project SHELLS I. It is intended primarily for administrators, teachers, school volunteers and parents to learn how to minimize, circumvent or even eliminate some of the obstacles of doing science in elementary schools. Since physical science is the most problematic content for adults and children alike eighty percent of series content deals in physical science concepts. Part I consists of a set of seven half hour shows: five programs on force and motion topics; one on instruction using physical science concepts and one show on administration topics related to implementing and maintaining a strong elementary science program. In addition there is a 10-minute overview tape for Part I to serve orientation and dissemination functions. The design goal is to make the shows sufficiently appealing and instructive to motivate adult viewers to become advocates for elementary science and to feel some satisfaction and joy in doing so. This proposal for SHELLS Part II will provide print materials for the videos completed in Part I and an in-depth evaluation of the project.